Engineering Research Equipment Grant: Real-Time Active control and Modal Test System

Many theories have been advanced recently for actively controlling flexible mechanical systems. However, experimental verification of these methods has not kept pace with the theoretical development. This project provides for equipment to evaluate some of the theoretical work and hopefully to identify new research directions in the area of control/structure interaction. The equipment comprises two components; an Integrated Systems Incorporated (ISI) MAX 100 and a Digital Equipment Corporation (DEC) VAXStation II. Together, they form a real time digital controller, a data acquisition system, as well as a powerful computing resource. Four projects have been identified which can benefit from use of the equipment. The first deals with control-structure-actuator interaction where the intent is to understand the effect of the dynamics of the actuators themselves on the entire system. A second project deals with design of spacecraft controllers consistent with the low total energy budget of the spacecraft system. A third project develops methods for testing the accuracy of a large class of existing multibody simulation tools. The fourth project focuses on testing theoretical models developed for advanced structural composite materials.